Ongoing Professional Development in Mathematics

Under this proof-of-concept project (category B of the TPC solicitation), the proposers would work with Rice University to create technology-enriched professional development modules in mathematics that deliever the same content and instructional strategies as found in exisiting face-to-face delivery models. The target audience is upper elementary school teachers in low-income communities.